Collaborative Research: MSPA-MCS: Embeddings of Finite Metric Spaces - A Geometric Approach to Efficient Algorithms

Geometry has become a central notion in algorithm design, in fields
as diverse as bioinformatics and graph partitioning.
This research is a concerted and unified attack on a large subset of the
underlying mathematical problems, which often have to do with
geometric embeddings of finite metric spaces.
The concrete applications range from clustering and learning to
compact representation of data to graph partitioning to
nearest neighbor searching. Since the research spans a
a variety of fields, the assembled team is multidisciplinary,
involving analysts (Johnson and Naor), a geometer (Gromov),
a discrete mathematician and combinatorialist (Linial)
and algorithm designers (Arora and Charikar).

The research area emerging from the ongoing geometrization of
algorithms is an exciting new frontier for both mathematics and
computer science. For example, deep mathematical results such as
Lipschitz extension may turn out to have applications
to the practical problem of compactly representing computer sounds.
In turn, algorithmic settings provide a fertile new ground for
mathematical theory. The investigators study geometric representations
for data and low disortion mappings into structured spaces. Metrics that
arise in the design of approximation algorithms for NP-hard problems are
studied, especially to understand their local versus global properties.
The research develops new understanding for practically
important metrics such as earth mover and edit distance
metrics, which are defined in terms of computational effort and have
thus not been studied in mathematics.